GPS Study of the Transition Between Subduction and Collisionin Papua New Guinea

9628071 Silver The PI proposes a GPS field and dynamic modeling investigation in Papua New Guinea focused on understanding the changes in width and strain rates of the transition from subduction at the New Britain trench to collision in New Guinea, which provides an ideal example of the many stages of arc-continental collision. ***